Wisconsin Science Education Service Centers Network Project

The Board of Regents University of Wisconsin System is expanding a comprehensive plan for the in-service education of teachers of elementary, middle and high schools through the establishment of Science Education Service Centers at seven campuses of the University of Wisconsin. The Wisconsin Department of Public Instruction will cooperate to develop a network of these model science education service centers that will be designed to meet the diverse needs of elementary, middle/junior high and senior high school science teachers from all parts of the state. The seven sites chosen for the continuation of the Centers represent different population profiles. Programs will be held at the following university campus for the following levels: Green Bay - High School La Crosse - Elementary School Milwaukee - Middle School Parkside - High School Platteville - High School Superior - Elementary School Stevens Point - Elementary School Programs at each of the sites include appropriate content courses, laboratory-based activities and a structured follow- up schedule insuring support for these participating teachers. A network will also serve as an initiator for similar Centers at additional campus sites throughout the state. Cost-sharing equal to 96% of the amount funded by NSF has been added to the program by the contributing partners.